Presidential Young Investigator Award: Computer-Aided Design Synthesis

Birmingham This research focuses on the development of a set of tools to rapidly prototype digital systems taking into account a need to minimize lifetime costs by building testable systems and including consideration of manufacturing issues. The knowledge- based synthesis system MICON serves as a software workbench. MICON takes a input high-level functional specifications for a microprocessor-based system and generates a complete design. More specifically, this research focuses on three major topics: 1. A design-for-testability extension (DFT); 2. A domain-independent version of MICON (DIM); and, 3. An interface to high-level (behavioral) synthesis tools. Research is concentrating on three areas: heuristic search methods for large-scale optimization, knowledge acquisition tools, and timing verification.